PLAN-IT EARTH (Paring Learners and Nature with Innovative Technology)

9619009 Lisowski PLAN-IT EARTH is a partnership between teachers (grades 9-12), and scientists from the Illinois Department of Natural Resources, Science Coordinators from the Illinois State Board of Education and the Illinois Regional Offices of Education, science educators from the Environmental Education Association of Illinois and the Illinois Environmental Education Advocacy Consortium. The design of this project facilitates the development and strengthening of teachers'/students' background knowledge of basic science concepts and enhances inquiry pedagogy through environmental field-based learning experiences. The teacher enhancement sessions will provide experiences that will highlight ecological concepts, processes and related teaching strategies. Classroom and field instruction will focus on science concepts and processes associated with prairie, wetland, stream, agro, urban and forest ecosystems. Through this program, established teacher leaders will coordinate and implement a series of field-based environmental monitoring projects and classroom activities on these six ecosystems. The Monitoring of projects is aligned with the efforts of the Illinois Department of Natural Resources' Critical Trends Assessment Project (CTAP). Teachers and students alike, will be involved in contributing to a systematic base of empirical information. Validated indicator protocols will allow for data analyses that identify and describe the contents and conditions of Illinois' forest, streams, prairies, agro, wetlands, and urban systems. The intensive residential summer program, offered at three regional sites (North, Central, Southern Illinois University), will engage 30 participants per site annually. Each will focus on two Illinois ecosystems per year. Participants will focus on science concepts, instructional strategies, technological applications, and research techniques. Eight follow-up sessions will engage participants at each of the regional sites mo nthly for all 90 participants. Follow-up sessions will focus on continued enhancement of science content and science instruction, mentoring strategies, technology usage and dissemination strategies. Data submission will occur on an established basis from all estimated 6,000 participating students. Maintenance of a network system for sharing will occur through a home page on world wide web, newsletters specifically for the project and special sessions at the anual state science conventions.